Measurements of the Radiative Properties of Marine Clouds inASTEX

The object of this research is the measurement of the radiative properties of water clouds near the Azores (June 1992) as a component of the Atlantic Stratocumulus Transition Experiment (ASTEX). In particular, the University of Washington research aircraft will make measurements of the spectral absorption of solar radiation by these clouds, the optical thickness, effective particle size, bidirectional reflectance of cloud tops, and the flux of ultraviolet radiation in and above the clouds. Also, as opportunities permit, microphysical structure and radiative measurements will be made of clouds modified by the effluents from ships.